The Regulation of Neural Connections by NGF

To examine the role of nerve growth factor (NGF) in the formation of specific connections in vivo, the investigator recently developed a transgenic mouse line in which there is overexpres- sion of NGF in the pancreas. The overexpression of NGF in specific regions of the pancreas is correlated with large increases in the synaptic density of sympathetic innervation in these regions. This transgenic line will now be used to study the development of synapses employing immunocytochemistry for a synapse-specific molecule, synapsin. The pancreas and the celiac ganglion of adult control and transgenic mice will also be immunocytochemically stained for beta-amyloid, which has been demonstrated to increase in response to NGF. Studies of the ganglion using this antibody will reveal the ganglionic neurons that project to the islets and indicate consequences of this chronic exposure in vivo for their development, maintenance and possibly, their degeneration. In addition, new transgenic mice will be created in which there is overexpression of NGF in the central nervous system. These mice will be used to determine whether there are important differences between the peripheral and central nervous systems in the balance of trophic factors regulating synaptogenesis.